Role of Aminoacylation in the Replication of Viral RNA

The genomic RNAs of some plant viruses contain tRNA-like structures at their 3' ends. There is a highly developed tRNA mimicry, with aminoacyl-tRNA synthetase and elongation factor interacting efficiently with the Viral RNAs. The advantages to the virus of this elaborate tRNA mimicry remain unclear, but are probably involved in (-) strand synthesis, the first step of the viral replication cycle. The goal of this proposal is to understand the function of the tRNA mimicry for turnip yellow mosaic virus (TYMV). The 82 nucleotide-long tRNA-like structure of TYMV specifically accepts valine and appears to include the (-) strand promoter. We have shown that alteration of the -CAC-valine anticodon to a non- valine anticodon results in dramatic loss of valylation in vivo. Experiments are proposed to test whether the anticodon is important (a) primarily in directing the valylation of the viral RNA, or (b) because it is an essential recognition element of the (-) strand promoter. TYMV replicase will be purified in order to determine which subunits- viral or host-encoded (e.g. elongation factor) - are responsible for the recognition of the tRNA-like structure as promoter. While mimicry at the phenotype level has been recognized as a biological phenomenon for many years, mimicry at the DNA level is new and unexpected. The information resulting from this award should give some insight into cause.